Enhanced Instrumentation for Undergraduate Instruction in Environmental Chemistry

The addition of two items for the central instrument facility: 1) a purge and trap system, and 2) a high performance liquid chromatograph, provides full support for the current instruction in the environmental sciences and substantial support for an environmental engineering program. The additional instruments augment those already available and provide all the major instrumentation needed for up-to-date instruction in the environmental chemistry component of the environmental programs. The augmented instrumentation supports specified EPA methodology and the development of novel methods for environmental analysis. The grantee provides funds for this project that are an equal match for the NSF award.